FASEB Summer Conference on Receptors and Signal Transductionto be held on July 12-17, 1992, in Copper Mountain, Colorado

Mechanisms of communication between cells constitutes one of the most fundamental processes in all of biology. Intracellular communication plays an important role in endocrinology, immunology, neurobiology, and control of cell growth and differentiation. This intracellular communication is largely mediated by the presence of specific receptors and signal transduction systems within the cell or the cell surface. This conference will review the most recent current knowledge about these receptors and signal transduction mechanisms. It will involve individuals from academic settings and industry and from very senior level to indviduals still training.